Free Boundary Regularity Problems in Harmonic Analysis

ABSTRACT

The theme of this proposal is the strong relationship that exists between
the questions of how the geometry of a domain can be recovered from the
regularity of its harmonic measure, and free boundary regularity problems.
Remarkably the analogies become more apparent when examined under a
geometric measure theory magnifying glass. The core of this proposal
addresses the question of describing in detail the singular set of the
free boundary in problems which are similar to the optimal design question
described below. The PI and N. Wickramasekera propose to use tools from
geometric measure theory, which have been very successful in similar
situations in geometric analysis. They have remarked that Weiss' new
monotonicity formulas yield similar information to the one provided by the
monotonicity formulas for energy minimizing harmonic maps and area
minimizing surfaces. The proposed program follows the schemes which have
lead to the successful resolution of these 2 major problems.

Two-phase free boundary regularity problems arise naturally in physics,
chemistry and engineering. In optimal design and optimal control problems
within the context of electrochemical machining with threshold current,
the surface between the anode and the electrolytic solution plays the role
of the free boundary. In the symmetric plane flow model of jets with two
fluids the outer jet is surrounded by air, so the flow region has two free
boundaries: the boundary of the outer fluid and the boundary between the
two fluids. The central problem of characterizing the regularity of the
free boundary has been studied by many authors. Over the last 3 years the
PI and C. Kenig have studied the case in which one has information about
the ratio of the speeds of the two fluids at the free boundary. This
question had not been addressed before. They found a global criteria which
guarantees the regularity of the free boundary. One the themes of this
proposal is the study of several free boundary regularity problems using
these new tools. The proposed research provides a different outlet for
geometric measure theory (GMT), a field of Mathematics that has
contributed greatly to the development of the calculus of variations and
geometric analysis. The success of the project would provide a road map
for a new generation interested in applying GMT techniques to more
concrete problems. An important feature of the proposed work is that,
while some results have already been obtained, there is great potential
for expansion. In particular, we expect the active participation of
graduate students and junior mathematicians.